ADVANCE Leadership Award: Strengthening Our Academic Foundations

This project focuses on improving the hiring, promotion and retention of women faculty
members in academe. To achieve this goal the best practices currently in use will be identified by
conducting site-visits at 35 Research Extensive and Intensive universities and by publicly
recognizing departments of chemistry and chemical engineering having positive environments
supportive of women faculty members. In addition, participating schools will be given
confidential feedback on the environment for women at their institution as well as the general
findings from this study. A toolkit will be developed for all institutions to use to identify
strengths and weaknesses in their practices with respect to women faculty and to suggest ways
they can assist new and mid-career faculty members. Overall assessments of the data from the
on-site visits will be prepared for publication, highlighting successful best practices, and
presentations will be given at national meetings of the American Chemical Society (ACS).